RUI: The 1600 A.D. Eruption of Huaynaputina: Volcanology, Petrology and Environmental Impact

9614405 De Silva It is proposed to conduct a petrological and geochemical study of the volcanic products of the little-known but potentially globally significant 1600 A.D. eruption of Huaynaputina (southern Peru). This eruption resulted in complete destruction of the local communities and caused a breakdown of the socioeconomic fabric over a large area of southern Peru for over a century. On a broader scale, the magnitude of this eruption is consistent with previous speculative correlations with major perturbations of the environment in the early 17th century recorded in proxy records. Specific objectives of this study are to elucidate the nature and magnitude of the eruption, characterize and decipher the petrological and geochemical properties of the magma, and assess the possible global impact of the eruption. These objective will be realized through a multi-faceted approach involving field mapping, documentation and sampling of products, physical volcanology and bulk through microscale petrology and geochemistry. A particular effort to evaluate the pre-eruption volatile budget from studies of glass inclusions in phenocrysts will also be made.